Stellar Spectroscopy with Resolving Power 500,000

ABSTRACT BLACK, John AST-9421311 This award supports the use of the US Air Force 1.5m SOR telescope to undertake a range of observational programs in very high resolution stellar spectroscopy in the 0.5-1 micron spectral range. A Littrow echelle spectrograph will be assembled on the user optical bench, tailored for operation with diffraction limited star images. It consists simply of two units, the image relay, entrance aperture and CCD detector together at one end, and a lens, prism and grating unit at the other. The cross dispersed spectrum format will be optimized by using grating with a large groove spacing, so advantage can be taken of the diffraction limited images to record 90 orders at once. The CCD will have a large format (2048 X 4096 pixels), so that full spectral cover will be possible with only a few exposures. With this instrument, the SOR telescope will be able to record the very high resolution diffraction limited spectra of fifth magnitude stars, with a combination of resolution (/d = 500,000), signal/noise ratio (100) and full cover never previously obtained. * * *